The Village Ecodynamics Project CRPA Initiative: The Deep History of Pueblo People and the Neolithic Revolution

This award addresses the archaeological issues surrounding the ancestral Pueblo people and their Neolithic revolution or disappearance from the Mesa Verde region of southwestern US. The research describes the people, their living conditions and the environment, their impact on the region and the reason for their exodus to form new societies such as the Tewa-Pueblo society. The research and its results are significant, from both an archaeological and socio-cultural standpoint. An exhibit is planned, to explain and inform the public, in the History Colorado Center in Denver, Colorado, that will transfer this cultural knowledge to the under-served public including Native American and numerous rural residents. The effort is a collaborative endeavor involving the Crow Canyon Archaeological Center in Cortez, Colorado and the new History Colorado Center.

The exhibit will feature a typical living area, a scientific area with discussion of tree rings, and an area for discussion with scientific experts. In addition, the deliverable will include a website for further discussion with scientist and for accessing the latest research efforts.

The evaluation of this project is extensive starting from an overall evaluation of the museum itself and how to make this exhibit a significant part of the museum, pleasing to the audiences and how to improve its impact once the exhibit is open.